Pseudoholomorphic Curves and Dynamics

Abstract

Award: DMS-0606588
Principal Investigator: Krzysztof Wysocki

The project has two themes: (1) the development of a general
approach for studying non-linear elliptic equations arising in
symplectic geometry and (2) applications of global methods of
symplectic geometry to dynamical systems. Part 1 of the project,
joint with Hofer and Zehnder, develops an analytical framework
for Symplectic Field Theory. It is devoted to a general nonlinear
Fredholm theory, which takes place on new spaces of locally
varying dimensions called polyfolds. The second theme of the
project is the outgrowth of research of Wysocki and collaborators
on finite energy foliations. In one of the subprojects he will
use the theory of finite energy foliations to prove that
star-shaped energy surfaces in four-dimensional space carry at
least two Hamiltonian periodic orbits. A long-term behavior of
area preserving disk maps will be investigated in a joint
subproject with Hofer. To understand this behavior, the Floer
theory will be combined with the theory of finite energy
foliations. In another part of the project, Wysocki will use
finite energy foliations to study the uniqueness of symplectic
capacities of convex domains in four-dimensional spaces.

The problems studied in symplectic geometry were motivated by
celestial mechanics. For example, the motion of the planetary
system can be described by a system of nonlinear differential
equations called Hamiltonian systems. The flow lines of
Hamiltonian systems follow very complex patterns. This project
will provide new tools for studying complexities of this behavior
and will lead to a better understanding of the structural aspects
of Hamiltonian flows on star-shaped energy surfaces. The new
general Fredholm theory aims at providing the rigorous analytical
foundations of Symplectic Field Theory. These ideas should also
be applicable to nonlinear partial differential equations arising
in mathematical physics.